Graduate Research Traineesips on Human Capital in Urban Communities

GER-9553454 Gittell We propose a graduate research training program in the area of Human Capital in Urban Communities which will take an interdisciplinary approach, and draw upon faculty in political science, sociology, environmental psychology, social/personality psychology, urban studies and cultural anthropology already conducting Human Capital related research. The program is oriented toward African-American and Hispanic doctoral students, and will involve an initial cohort of five trainees. Our doctoral programs have successfully recruited and graduated substantial numbers of minority doctoral students in the social sciences for two decades. We will use existing recruitment bridges to outstanding minority students in the senior colleges of the City University of New York, as well as national searches. Seven of the training program faculty will be minority scholars. The program involves a sequence of courses on research methodologies, theoretical approaches to understanding human capital, and institutional studies on families, neighborhoods, schools, work places and labor markets. It includes student apprenticeships in existing faculty research projects.